Science Teachers Discover Physics

The Bakken, A Library and Museum of Electricity in Life, will offer a four-year enhancement program for twenty (20) under- prepared science teachers in physics and physical sciences, grades 8-12. The program covers optics, acoustics, and electricity in a series of five-week institutes conducted at The Bakken in Minneapolis, Minnesota, followed by a year of independent study by the teachers and results in graduate credits from the University of Minnesota. The program focus is designed to increase hands-on experimentation and to stress the investigative nature of the experiments through an historical approach. Students will repeat famous discoveries using inexpensive copies of historical instruments and explore links between physics, mathematics, biology, and art. As a follow-up to the project, teachers will continue to be supplied with instructional materials and samples of new instruments, and receive issues of a newsletter in which teachers share information and experiences.